Software Building Blocks for Image Understanding

This Software Capitalization Grant will support the free distribution of important image analysis software to all interested universities, colleges, and industrial sites. The research software, developed with support from a 1983 Center for Engineering Research award, includes routines for superquadric volumetric modeling, wavelet decomposition of signals, image segmentation, and tactile camera visualization. Polishing of the user interface (including documentation) and porting of the suite as necessary to Sun, Microvax, and IBM platforms will be a done by a team of undergraduate students, providing valuable research experience and career training. An effort will also be made to identify serious users and compile information useful for evaluating the success of this experimental program.